Algorithms for the Inverse Problem of Matrix Construction

The inverse problem of matrix construction arises in many
areas of important applications. Matrices under construction
are supposed to satisfy certain specific constraints. The
constraints could be inherited intrinsically from the physical
feasibility of a certain mechanical structure or could be
driven extrinsically by the desirable property of a certain
design parameter. This proposal intends to extend the
investigation that the PI has been conducting in the past
years with emphasis on the the development of numerical
algorithms for application to challenging inverse problems.
Four specific inverse problems of matrix construction will
be studied via three possible numerical approaches. Techniques
to be used involves computer experiments, high resolution
graphics and symbolic manipulation, in conjunction with
mathematical analysis. This project is expected to find
important applications ranging from new development of
numerical algorithms to theoretic solution of difficult
problems. Since matrix reconstruction with specified
properties arises from a remarkably wide area of disciplines,
the resulting technology would have substantial impact on the
progress in scientific and engineering fields.

In the era of information and digital technologies,
massive data processing becomes an imperative task
at almost every level of applications. In many situations
the digitized information is gathered and stored as a data
matrix. Nonetheless, because most of the information
gathering devices or methods have only finite bandwidth, one
cannot avoid the fact that the data collected often are not
exact. Signals received by antenna arrays often are
contaminated by instrumental noises; astronomical images
acquired by telescopes often are blurred by atmospheric
turbulence; and even empirical data obtained in laboratories
often do not satisfy intrinsic physical constraints. Before
any forward analysis technique can be applied, it is important
to first reconstruct the data matrices so that the inexactness
is reduced while certain feasibility conditions are satisfied.
The general objective of this proposal is to develop numerical
algorithms to carry out this kind of data reconstruction task.
The work in this proposal concerns the mathematical theory and
the numerical implementation of three algorithms for four
specific inverse construction problems. This investigation
could lead to improved techniques for use in several national
strategic areas, including ground-based astro-imaging
processing, medicine, communications, and laser technology.